International Research Fellow Award: Programmed Structural Order in Functional Dendrimer Protein Mimics

0076184
Castellano

The International Research Fellow Awards Program enables U.S. scientists and engineers
to conduct three to twenty-four months of research abroad. The program's awards
provide opportunities for joint research, and the use of unique or complementary
facilities, expertise and experimental conditions abroad.

This award will provide Dr. Ronald K. Castellano with support for twenty-four months to
work with Dr. Francois Diederich at Eidgenossische Technische Hochschule (ETH) in
Zurich, Switzerland. This project is being co-funded by NSF's Directorate for
Mathematical and Physical Sciences' Office of Multidisciplinary Activities.

This project involves the study of programmed structural order in functional dendrimer
protein mimics. Dendrimers are symmetrically-branched molecules. In biological
systems, secondary and tertiary protein structures work cooperatively to modulate the
enzyme active site by exposing functionality and providing substrate accessibility. As a
next step toward functional, dendrimer-based protein mimics this research will address
control over dendrimer surface and branching structure. The proposed coiled coil
dendrimers will be a new class of synthetic protein model systems that combine both
structural and functional elements and will represent the first peptide-containing
dendrimers to demonstrate well-defined and tunable structural order.

Dr. Castellano's project will complement ongoing research at Dr. Diederich's lab, on
functional dendrimers for recognition and catalysis and promises to help work toward
major advances in the field of dendritic biological mimics. Dr. Diederich has nearly 20
years of experience in molecular recognition and supramolecular architectures. He is a
leader in biomimetic dendrimer chemistry. The ETH will provide a unique melding of
biological and chemical sciences making it the ideal place to this bioorganic research
project. This research will have impacts in fields such as biochemistry, specifically
biometric synthetic chemistry and in self assembly of nanoscale materials.

***